Geometry and Topology of Symplectic Four Manifolds

DMS-0207488
Tian-Jun Li

The focus of this project is to apply methods from differential
topology, geometric analysis and algebraic geometry to study
symplectic four manifolds.
Symplectic four manifolds can be divided into four categories
according to their Kodaira dimensions, which take values -1, 0, 1
and 2. The classification of those with Kodaira dimenision -1
has been achieved, to which the investigator has made essential
contribution. Tian-Jun Li proposes to classify those with Kodaira
dimension 0. Fiber sum is the most powerful construction of
symplectic four manifolds, and one would like manifolds
constructed this way to be minimal. Tian-Jun Li has shown that
a large class of fiber sums are indeed minimal. The investigator
believes that he can prove it for all fiber sums using
his work on the minimal genus problem for rational surfaces.

An n manifold is a space that locally looks like the Euclidean
space of dimension n. For example, the space-time universe we
live in is a four manifold.
A symplectic four manifold is a four manifold with
a symplectic structure, a very basic structure that underlies
almost all the equations of classical and quantum physics.
Thus symplectic four manifolds
play a central role in mathematics and physics.
The investigator aims to gain some understanding of the
fundamental problem: classifying symplectic four manifolds.